Variational Problems in Low Dimensional Geometry and Topology

Abstract

Award: DMS-0076085
Principal Investigator: Robert Kusner

This project continues research on extremal surfaces and related
geometric variational problems, with applications to
low-dimensional topology and the natural sciences. The principal
investigator will work on (1) existence and uniqueness of
surfaces minimizing the Willmore bending energy, (2)
determination of the moduli spaces of complete constant mean
curvature surfaces (CMC) with finite topology, (3) geometric
analysis of brownian motion and potential theory on properly
embedded minimal surfaces with infinite topology, and (4) the
existence and geometry of energy-minimizing knots and links. In
addition, the principal investigator will work at GANG with
senior scientist N. Schmitt on the approach to constructing CMC
surfaces using monodromy of flat (loop) SU(2)-bundles over a
Riemann surface; this will include an experimental aspect
(computation and visualization of families of examples), as well
as a theoretical aspect (relationship between integrable systems
and the functional/ geometric analysis methods).

While the motivation for most of this work is primarily
aesthetic, it should be noted that minimal, CMC and Willmore
surfaces arise in physical situations as interfaces between
fluids, and thus their geometry may have some value in predicting
the behaviors of certain natural and synthetic materials. For
example, vast resources are wasted when automatic soldering of
electronic microcomponents results in short- or open-circuits:
some of the principal investigator's work on CMC surfaces has
direct application to this problem; he has freely shared his
ideas (at NIST and elsewhere) with people trying to solve it.
The principal investigator's recent work on ropelength of knots
and links (some published in the general science journal, Nature)
represents the first careful effort to mathematically investigate
-- and, in certain instances, correct -- claims in the literature
about the geometry of long polymeric chains (such as DNA); he is
actively collaborating with natural scientists around the world
on this topic. Schmitt's visualization work on new CMC surfaces
has been documented in the recent GANG film "Surfaces, Flows &
Holonomy," scenes of which are available at www.gang.umass.edu.
This award is cofunded by the program in Computational Mathematics.